Molecular Dynamics of Icing on Cables and Structures

This project will characterize the molecular dynamics associated with the formative and growth of interface bond of ice and pavement. The study will use the laser micro-ramon spectrocopy and molecular dynamic simulations of transient interface phenomena involving metal and asphalt materials. The project involves experimental and analytical investigations.